Presidential Awards for Excellence in Science, Mathematics, and Engineering Mentoring

University of Nebraska - Lincoln (UNL), Department of Mathematics and Statistics
Judy L. Walker
HRD-981497
Between 1990 and the present, 13 doctoral degrees and 49 master's degrees in mathematics or mathematics-related fields have been awarded by UNL to women, compared to no doctoral degrees awarded during the entire decade of the 1980s. These increases in the number of mathematics or mathematics-related degrees earned by women attest to a climate highly supportive of women and to the effectiveness of the UNL approach. Women graduate students in the UNL Department of Mathematics and Statistics are encouraged to mentor high school students, meet regularly with role models, engage in research, attend professional meetings, and acquire teaching experience. For the past six years, 45% of the graduate student body of the UNL Department of Mathematics and Statistics has